Mathematical Sciences: RUI: Periodicity in Stable Homotopy

Shick will investigate periodic phenomena in stable homotopy theory. In particular, he wishes to understand the relationship of vr- periodicity with the root invariant. He also wants to look into the conjectured unboundedness of vr- torsion in the homotopy groups of spheres.